ROW: Sol-Gel Synthesis of High-Temperature Superconducting Oxides

This is a Research Opportunities for Women Research Initiation Award. The objective of the investigation is to prepare superconducting alkaline earth-rare earth copper oxides via sol-gel synthetic techniques, and to study the physical properties of the materials made by this technique as compared with materials prepared via high temperature solid state reactions. Sol-gel techniques involve the polycondensation of solution-phase metal complexes to form inorganic networks which ultimately form a gel. Gels can be heated to relatively low temperatures (400 to 800C) to form metal oxide glasses or crystalline phases. The program will emphasize study of gel evolution with temperature to form glasses and crystalline phases using nuclear magnetic resonance, infrared spectroscopy, electron spin resonance techniques, differential scanning calorimetry, thermal gravimetric analysis, and x-ray diffraction, as well as characterization of the properties of the specimens by measuring electrical conductivity, and ac and dc magnetic susceptibility. Advantages of sol-gel processing over solid state processing include lower reaction temperatures, greater homogeneity, purity and compositional control, and the ability to cost gels into various forms and shapes prior to final heating. In the case of superconducting oxides, these advantages will yield materials having higher quality and will allow fabrication into useful shapes.